SGER: Distributed Symmetric Active/Active Metadata Management

The objective of this SGER proposal is to explore high availability storage services through a forefront research on distributed symmetric active-active metadata management. This SGER proposal investigates and provides a proof of concept of three key problems: global state identification and consistency, group communication overhead, and metadata server membership management.